FASEB Summer Research Conference: Plant Molecular Genetics Copper Mountain, Colorado, August 9-14, 1992.

The Federation of the American Sociey for Experimental Biology will host a conference on Plant Molecular Genetics at Copper Mountain, Colorado, on August 9-14, 1992. Overall, the objective of the conference is to bring together genetic approaches to studies of plant development, hormone action, transcriptional regulation, biochemical regulation, and disease resistance. %%% It is timely and useful to bring together plant scientists at a conference where the key emphasis is on the use of genetic analysis in the study of plant biology.